Continuous On-line Monitoring of Bacteria in Water and Wastewater Treatment Plants

The concept proposed for this research program is based on combining advanced immunoassay strategies for microorganism recognition with capable vapor sensors for on-line feedback in wastewater chlorination. the antibody-antigen step will be configured to yield simultaneously vapors specific to certain pathogens and will likely involve multiple antibody-enzyme-substrate-vapor combinations. The sensor will be an ion mobility spectrometer which has been altered chemically in the ion source to produce favorable response to target vapors and diminished sensitivity to potential interferences. This combination of antigen-antibody recognition will be a basis for high selectively and the ion mobility spectrometer will provide ultra-low detection limits and fast response. The combination of immunoassay with vapor sensors is intended for domestic fixed point monitoring in domestic water treatment plants. The feedback loop is intended to allow a rational and informed control over chlorination. Such enhanced control will permit a balance between over-chlorination (chemical pollution) and under chlorination (biological pollution) in wastewater treatment plants initially. However, with minor changes in inlets and small modifications in procedures (mostly sample handling), in-field rapid bacteria assays could be developed and used nationally and in developing nations where water borne pathogens constitute daily threats to public health. The core science and engineering is much the same and both uses will be pursued although priority will be given to water and wastewater treatment plants.